CPS: Small: Uncertainty-Aware Monitoring of Autonomous Cyber-Physical Systems: Offline and Online Safety Analysis with Hybrid Formal and Non-Formal Models

Autonomous systems — such as self-driving cars, robotic assistants in factories, and AI-powered medical tools — are becoming increasingly common in everyday life. These systems are expected to operate safely and reliably, even as their internal components grow more complex. Ensuring this safety is a growing challenge, especially when these systems behave in ways that are hard to predict or model. Traditional approaches based on formal methods can mathematically prove that a system is safe, but these methods often struggle with highly complex or partially black-box systems. This project considers an alternative, practical approach based on monitoring, which checks if a system behaved safely by analyzing its recorded data (logs). Monitoring offers a flexible and scalable approach, especially when traditional analysis tools fall short. However, current monitoring tools still depend on simplified models of the system and often fail when faced with noise, incomplete data, or systems that incorporate machine learning. This project aims to address these limitations by developing new system representations as well as data collection and analysis techniques. The ultimate goal is to make monitoring more reliable, efficient, and applicable to the complex autonomous systems used in the real world. This work enhances the trustworthiness of emerging technologies while contributing foundational methods that can benefit other domains such as robotics, transportation, and healthcare.

The project aims to advance both offline and online monitoring techniques to improve safety assurance in complex autonomous cyber-physical systems. Unlike traditional formal methods that require exact models, monitoring can work with approximate system knowledge. Yet, existing monitoring still depends heavily on complex over-approximated formal models, which struggle with scalability. This project proposes hybrid monitoring approaches that integrate formal and non-formal models such as learning-based and Simulink models. It also seeks to develop algorithms for constructing such hybrid models on-the-fly or through static analysis. Further, the project will handle real-world logging uncertainties, such as noisy or missing data, by treating them as core concerns. It will also pursue energy-efficient logging policies and explore dynamic, performance-aware online monitoring strategies.